Mechanism of Enzyme Action

Glycine Reductase (GR) The mechanism of action of GR will be investigated. GR catalyzes: CH2NH3+COO- + Pi 2e CH3COOPO3= + NH4+ The reaction involves reductive cleavage of the C-N bond, a very difficult reaction. Additionally, it leads to the formation of a high energy bond. GR contains a seleno-cysteine residue. For these reasons the mechanism of action is of interest. A Methionine Salvage Pathway Throughout this pathway, 5'-S-methyl adenosine is converted to formate and methionine. This pathway occurs in all living organisms. We have elucidated some, but not all intermediates, of this pathway, and have characterized some of the enzymes. We intend to characterized the remaining enzymes and intermediates. The pathway in micro-organisms differs in one step from the mammalian pathway. We plan to make use of this difference to selectively introduce compounds into bacteria which will be metabolized to bacteriocidal compounds. Cystathionine Sunthase (CS) CS, a pyridoxal-phosphate dependent enzyme, catalyzes the replacement of the -OH group of serine by homocysteine. We propose that the enzyme controls the course of the reaction by rotating the B-carbon between two positions. Elimination occurs from one, but not from the other. Experiments will be carried out to test this mechanism.